Stability of Travelling Waves with Applications in NonlinearOptics

The cubic nonlinear Schroedinger (NLS) equation is a partial differential
equation that describes pulse train generation in solid state
or fiber lasers, or pulse propagation in long distance communication
systems under ideal conditions. In order to describe the situation under
more realistic physical scenarios, i.e., with losses, spectral filtering,
etc., one must consider extended model equations which are perturbations
of the NLS and which depend on the physical situation that is being modelled.
Examples include models for phase-matched third-harmonic generation,
materials with higher-order nonlinearities, and passively mode-locked fiber
lasers. Numerous recent research efforts have indicated that these extended
models are very robust. The central mathematical question of the planned
research is the stability of propagating pulses, incorporating for example
effects of small gains and losses in the optical fiber, and the correct
balance of these effects which will guarantee stable pulses. A mathematically
rigorous analytical study of the existence and stability of solitons for the
governing equations has been lacking and will be developed. The work
will exploit a recently discovered mathematical structure for the extended
model equations. It makes use of the fact that these equations are very close
to integrable equations that have been studied extensively.

Fiberoptic cables are of growing importance in long distance communications.
The pulses which carry information in such cables can be described by
mathematical equations that depend on the medium, among other things. The exact
form of the equations is usually not known. In order for information to arrive
undistorted at its destination, it is essential that these pulses remain stable
as they travel along the fiber. In this work, rigorous mathematical methods to
study this stability will be developed. The methods will also be robust under
changes of the medium and will therefore have wide potential.